VPW: Mathematical Analysis of the Early Events in Cell Signaling

This research uses methods of mathematics and statistics, in conjunction with experimental work in two cell biology laboratories, to clarify the first responses of cells to extracellular "signaling" molecules. Hormones, cytokines, immune complexes and antigens all initiate cellular responses through interactions with specific cell surface "receptors." Diverse systems have in common the two initial events in cell signaling that this project addresses, the aggregation of cell surface receptors, followed by the phosphorylation of tyrosine on receptors and non-receptor proteins. The first collaboration investigates mechanisms and effects of receptor aggregation through the analysis of molecular point patterns on electron microscope images. The second collaboration focusses on mechanisms by which aggregated receptors mediate tyrosine phosphorylation. A proposed model appears to be consistent with previously obtained data and makes additional testable predictions. Interactive activities include: teaching a graduate course on "Stochastic Models in Biology and Chemistry," and organizing special visits of women with active research programs in Mathematical Biology, Biostatistics, Biophysics, and related sciences. Activities aimed at fostering interactions of students with the visitors include preparatory seminars preceding the visits, a student-oriented talk as part of each visit, and organized discussions between students and visitors.